Fault-Tolerant Systems Analysis: Techniques for Model Generation and Solutions

Problems arising during the analysis of fault tolerant systems can be broadly classified into those relating to model construction and those relating to model solution. This research is developing new analytical techniques that will aid in the solution of both types of problems, by investigating the use of two different modeling languages, fault trees and extended stochastic Petri Nets. Fault trees have been traditionally used to assess the reliability and failure modes of life critical systems, but are severely limited in the ability to model the dynamic behavior intrinsic to fault tolerant systems. The methodology under development will address this limitation by defining new solution methods that allow the consideration of such dynamic behavior within the fault tree model. Thus, a modeler may take advantage of fault trees' concise representation that eases the model construction task, without experiencing the limitation in modeling power that is associated with traditional fault tree models. Extended stochastic Petri net (ESPN) models are able to model behavior that is intrinsically concurrent, asynchronous and nondeterministic, and thus are also a valuable model construction tool. An ESPN model can be used to capture the dynamic behavior that is absent from the fault three model. The behavioral decomposition technique is then used to combine the models together. Also, the development of DEEP (the Duke ESPN Evaluation Package) which addresses both the construction of a valid ESPN model as well as its solution, will enable more general use of the ESPN modeling language.